Filament Winding Thermoplastic Composites

The objective of this research is to develop the methodologies required to filament wind thin and thick structural elements made of thermoplastic matrix composites. Models will be developed which simulate the filament winding of thermoplastics, and (a) provide the required relationships between geometry, material properties, filament winding process variables, (b) specify the appropriate process variables for a given application, and (c) yield information needed for computer aided simulation and control of the manufacturing process. The models will be implemented by "user-friendly" ready-to-use computer codes. The problems associated with filament winding of thermoplastic composites are also being considered, and techniques for filament winding such composites will be developed. In order to evaluate the validities of the winding techniques and the models developed during the course of this research, thin and thick cylinders will be wound using thermoplastic matrix composites. These cylinders will be inspected and tested, and the data thus obtained will be compared to the results of the analytical predictions. The results of this research are expected to provide understanding of the filament winding process of thermoplastic matrix composite structures, and to lead to practical and cost- effective procedures for filament winding such structures.